National High Field FT-ICR Mass Spectroscopy Facility

With support from the Chemistry Research Instrumentation and Facilities (CRIF) Program, Alan G. Marshal, Christopher L. Hendrickson and Mark R. Emmett of Florida State University (FSU) and John R. Eyler of the University of Florida will continue to operate the Fourier-Transform Ion Cyclotron Resonance/Mass Spectrometry (FT-ICR/MS) Facility, housed in the National High Magnetic Field Laboratory (NHMFL) at FSU. Studies to be carried out using the FT-ICR/MS facility during the next grant period include isotopic resolution of proteins; highly accurate mass spectra of complex mixtures such as petroleum feedstocks; analysis of environmental mixtures (oil spills; bioremediation); and studies exploring the use of magnetic fields to control ion/molecule reactions. Design and development efforts will focus on the installation of a matrix-assisted laser desorption/ionization (MALDI) FT-ICR/MS instrument into an 11 tesla magnet; installation of an electrospray ionization (ESI) FT-ICR/MS instrument using a 17 tesla magnet; and the development of mass-selective external ion accumulation, which should lead to improvements in sensitivity and dynamic range. The PIs also plan further development of optical spectroscopy of mass-selected gas phase molecular ions using FT-ICR. They will continue to provide access and services to the external user community, including provision of funds for visiting graduate students and postdocs; and mass analysis for non-FT-ICR MS experts and industrial concerns. Education and outreach efforts will continue, such as regular publication of newsletters, organization of biennial conferences, and participation of undergraduates in summer research programs.

The Fourier Transform-Ion Cyclotron Resonance/Mass Spectrometry Facility at Florida State University is a unique national resource that provides state-of-the-art analytical instrumentation and mass spectral analysis to chemists and biochemists in US academic and industrial institutions. Studies that are carried out at the facility lead to a better understanding of the behavior of biomolecules, and the structure of biomolecules, complex mixtures important in environmental chemistry, and petroleum products. This facility also makes an important contribution to the training and education of significant numbers of graduate students and postdoctoral fellows in the use of advanced mass spectrometry.